Theory And Application of Splines

In the past 40 years, spline functions (in their simplest form,
piecewise polynomials) have become a well-established
computational tool, and are now widely used by scientists
and engineers. They are used for a variety of purposes,
including approximating curves and surfaces,
fitting data, computer-aided geometric design (CAGD),
computer-aided manufacturing (CAM), solution of differential equations,
image processing, etc. The aim of this research is to continue to develop
the theory and applications of splines,
and to create and test algorithms for solving some specific
applications problems, especially problems arising in
CAGD, CAM, geology, geophysics, and meteorology.